QEIB: A Theoretical Framework for Density-Dependent Life-History Evolution in Variable Environments

The parameters defining the life history of an organism, for example,
survival rates at different stages in life, birth rates, germination
rates and dispersal rates, vary with the physical environment, such as
weather, and also with the biological environment defined by the
densities of organisms of different sorts. A general mathematical
theory of life-history evolution will be developed that takes into
account the interacting effects of a varying environment and organism
densities. Mathematical models will be developed and investigated using
probability theory, dynamical systems theory, and computer simulation.
Particular emphasis will be placed on annual plant germination, growth,
survival and reproductive relations in perennial organisms, and seasonal
variation in growth of perennial plants.

The life history of an organism is fundamental to the way it relates to
its environment, and therefore the life history is fundamental to
predicting what will happen to the organism as conditions change either
through human intervention or natural causes. The complexity of the
subject means that effective study requires a theoretical framework to
generate hypotheses, which can then be tested empirically. Although
separate theories for the effects of a varying physical environment and
organism densities have been developed previously, there has been very
limited attention to their interaction. The results of the study should
have wide applicability to wild organisms (flora and fauna, pests, weeds
and fisheries), with some applications also to crops and domestic
animals.